Mathematical Sciences Computing Research Environments

The Department of Applied Mathematical Sciences of the University of Houston-Downtown will purchase a high-speed workstation, and a compatible high-performance co-processor array. This equipment will be used in the following research projects. Project 1 To develop adaptive grid refinement algorithms which can be used for solution of the Navier-Stokes equations. Project 2 To develop parallel numerical algorithms to find reliable global numerical solutions for very large nonlinear systems of equations by using preconditioned Interval Newton Methods.